Fabry-Perot Observations of Auroral and Airglow Emissions

Atmospheric oxygen in the lower thermosphere is a major factor in the chemistry of that region and in the variability of ozone, OH, O2, NO and a host of others. In situ measurements of O in that region are difficult and controversial, large variability and order of magnitude changes make modelling difficult. This program is attempting to determine the relationship between atmospheric dynamics and the variability of atomic oxygen through combined Fabry Perot optical and incoherent scatter radar measurements. These data will be used to assess and improve the various global atmospheric dynamic, chemical, and emission models that exist.